A Seismic Tomography Study of Mantle Bouguer Anomalies and Crustal Thickness Variations at the Mid-Atlantic Ridge

New models of lithosperic accretion at mid-ocean ridges views the process as driven primarily by the nature of mantle flow beneath the ridge axis and the variable thermal and mechanical properties of the lithosphere forming along the ridge segment. These models make specific predictions about how crustal thickness should vary along-axis and between segments with different gravity signatures. The goal of this study is to test these predictions using a series of seismic refraction experiments at three spreading segments characterized by different amounts of magmatism and amagmatic extension.